An International Workshop on the Ice and Climate System of the Antarctic Peninsula; Spring 2006; Boulder, CO

This proposal requests support for a two-day international workshop on the ice and climate system of the Antarctic Peninsula to be held during the Spring of 2006 to discuss recent research results and possible logistical cooperation for future research. The National Snow and Ice Data Center at the University of Colorado will host the meeting. The meeting format will include a series of invited and keynote talks, contributed talks, and poster sessions, and breakout groups for collaborative field research planning. Student participation will be encouraged, and some travel funds for both invited speakers and students are proposed. A primary objective of the meeting will be to construct and coordinate a science and logistical plan for the International Polar Year period (IPY, 3/2007-3/2009).